UIUC Ethnographic Research Training

This award to the department of anthropology at the University of Illinois will cover partial costs for training in ethnographic research methods. The funds will be used over a period of five years to insure that Ph.D. students in social/cultural anthropology who take a specified course of study in social scientific research design and methodology have fieldwork experience before they begin their Ph.D. research. This activity is important to improve the training of social scientists, so that the new cohort of social researchers will be capable of advancing our knowledge of contemporary problems as well as of basic research issues.